CISE Research Instrumentation: Interactive Distributed Computing

9422033 Schwan This award provides support for the acquisition of a computational cluster of 10 Sun SPARCstations, and 2 user-interface capable SGI Indy workstations. The research projects to be supported include interactive scientific programs, distributed collaboration, interactive simulations, and efficient state sharing in interactive systems. A goal of the research is to develop systems and user interface technologies that will allow the realistic solution of problems using computing, networking and user interface capabilities. Primary research projects include on-line interaction with scientific simulations running on multiple, networked parallel machines; collaboration support systems that will allow users to collaborate over long distances; interactive simulations that will allow end users to run and view system simulations in conjunction with actual system operation; and development of operating system technologies that address the efficient sharing of state on single parallel machines and across multiple networked workstations or supercomputers. ***